Chemical Engineering Laboratory Improvement Project

Through this project, equipment for experiments in thermodynamics, gas diffusion, liquid-liquid extraction and gas absorption significantly improves laboratory instruction in chemical engineering at Rose-Hulman Institute. This equipment gives students experience with automated control of process equipment, with improved data acquisition, and with modern computer control and data logging equipment and techniques.